An REU Site in Chemical Engineering

A REU Site will be established in the School of Chemical Engineering of Purdue University. The goal of this site is to expose students (who would not otherwise receive such exposure) to the opportunities provided by research careers and advanced degree work. The goal will be met by expanding the academic undergraduate research program to provide a summer research opportunity for 12 students. During their summer at Purdue the students will work on original research projects in the chemical engineering sciences. Special effort will be expended to attract women and members of historically underrepresented groups to the program.